Mathematical Sciences: 1988-1990 Symposia on "Some Mathematical Questions in Biology"

This project is a Symposium on "Some Mathematical Questions in Biology" to be sponsored by the American Mathematical Society, the Society of Industrial and Applied Mathematics, and the Society for Mathematical Biology. The symposium represents the twenty-second in a series and will be held in conjunction with the annual meeting of the Federation of American Societies for Experimental Biology in May 1988. The annual meeting is supported by the National Science Foundation, the U.S. Steel Foundation, the National Institutes of Health, and the Institute for Defense Analyses. This symposium will focus on research questions related to the dynamics of excitable cells. The topics will deal with an analysis of the transitions that lead to bursting, cardiac pacemaking and wave propagation in cardiac tissue, wave propagation in the aggregation phase of certain cell systems, and collective phenomena in the brain. The overall goal is to expose biologists and physiologists to some of the more theoretical work being done by mathematicians, and to expose mathematicians to some of the concrete modeling work being done on particular systems.